Two-dimensional Models of Neural Sheets

Troy
The investigator studies the dynamical behavior of systems
of Wilson-Cowan type integro-differential equations that arise in
modelling cortex. His goal is to understand the subtle
connections between neurons in two-dimensional neural sheets,
which are responsible for (i) the formation of stable rotating
waves, and (ii) the existence of organizing centers that cause
periodic ring-shaped waves to form and propagate outward through
the medium. He employs computational techniques, as well as
asymptotic analysis and reduction methods, which allow the models
to simplfy to tractable forms. The mathematical and computational
results predict and verify the existence of stable rotating
spirals, and periodic ring-shaped waves recently discovered in
tangential slices of occipital cortex of rat brain. The
techniques developed in this study provide a new direction for
understanding persistent pattern formation in general neural
network models.
Neuronal networks in the central nervous system exhibit a
variety of persistent wave patterns. These range from oscillatory
waves consisting of synchronized bursts of spikes to
two-dimensional ring-shaped waves and rotating spirals. The
investigator is interested in understanding how such
two-dimensional waves form and propagate in the brain. He uses
simulations and mathematical methods to develop models that aid
in the understanding of wave formation. Cooperative research
between the investigator and experimental neuroscientists has led
to the recent discovery of spiral waves in rat cortex. This is
the first true verification of spiral waves in mamallian cortex.
Spiral waves are conjectured to be associated with the occurence
of seizures in the brain. The results of this project are also
included in the design of new interdisciplinary courses for
students.